Quantum Chaos and Electromagnetic Chaos

In this project fundamental problems in quantum chaos and electromagnetic wave chaos will be addressed using microwave experiments that study wave mechanics in model billiard geometries in which the classical particle dynamics is chaotic. The experimental results will be analyzed to obtain insights into the correspondence between classical and quantum properties. The correspondence between quantum and classical correlations, and the quantum coherent corrections, all of which signify non-universal behavior, will be a major theme of the project.